Pacific Voices

9553542 Kahn The Burke Museum at the University if Washington will develop Pacific Voices, a 5500 sq. ft. exhibit that will focus on the issue of cultural identity. It will encourage visitors to examine the definition of American cultural identity, the integration of diverse cultural elements within American communities, and questions regarding interactions between Native peoples and Euro- Americans. Four themes (Teachers, Elders, and Authority; Language; Oral Traditions; and Ceremonies) will be developed to help visitors understand cultural identify, tradition and change in the context of Pacific Region cultures. The extensive collections and professional resources of the Burke Museum will be used and the exhibit will be used. Building on established linkages between the Seattle school systems and the museum, the Burke staff will introduce new teacher/student guides and a varied menu of teacher training activities including for-credit courses and in-serviced programs that will address the social science literacy benchmarks of Project 2061. Other outreach activities will include traveling study collections, weekend family programs, a resource bank in the museum's Department of Education and locally and nationally disseminated radio and television news and feature programs related to the theme of Pacific Voices.